REU Site: Motivating Talented Students, Women and Underrepresented Minorities through Summer Research Experiences in Environmental and Transportation Engineering

This award provides support for an REU Site at Worcester Polytechnic Institute for three years. Eight students per year will be recruited from throughout the U.S. for an eight-week summer experience in research related to environmental and transportation engineering. The program will serve to encourage undergraduates to pursue advanced degrees in engineering and thus impact the nations need to increase the number of U.S. citizens and permanent residents engaged in research-related careers. It is also anticipated that this REU Site will have a Broader Impact on the nations need to have broader participation in the research enterprise of citizens and permanent residents from demographic groups traditionally underrepresented in science and engineering.